Support for the Southeastern Probability Conference

This award will help support the 2020 edition of the Southeastern Probability Conference to be held at Duke University May 11-12, 2020. The award will also support the 2021-2023 conferences. The Southeast Probability Symposium is a small regional conference supported by local resources that has been held at the Duke mathematics department seven times in the last nines year. This award will be used to (i) continue this successful series of conferences that highlight exciting new directions in probability, (ii) provide support for participants and include more probabilists from nearby universities, especially those without colleagues in their area and those with limited access to federal funding.

Similar to the Midwest and Northeast Probability Conferences, our goal is to serve the probabilists in the Southeast. However, in contrast to those meetings, which attract a large number of participants from a wide area,ours is a small meeting that allows ample opportunity for speakers and other participants to interact. Graduate students and postdocs will also have a chance to learn about recent developments from experts. A poster session at the end of the first day will allow early career researchers to present their work. Slides of the main lectures will be made available after the meeting on the conference web page to more broadly disseminate their content. The Conference web site is: https://services.math.duke.edu/~rtd/SEPC2020/SEPC2020.html